MIT Bridge Funding for U.S. Axion Search

9901117
Rosenberg
The PI requests support for operating the newly finished Axion detector for one year. During this year, the proposed activities include: Expand the mass search range, operate 4 RF cavities, continue to develop lower noise DC SQUIDs and low noise post-amplifiers.